Collaborative Research: Cosmogenic 3He Dating of Accessory Minerals

Cosmogenic isotopes such as 10Be and 26Al are widely used to determine the age
and exposure histories of landscape features. Such information is critical to
understanding the timing and rate of geologic processes such as active fault ruptures,
glacial advances, soil formation and erosion of mountain belts. However, the utility of
these isotopes is limited by the high cost and intense labor associated with producing a
single measurement. This project proposes development of cosmogenic 3He as a dating
tool in common accessory mineral phases such as apatite, sphene and zircon. If
successful, this technique will be unique in several respects. First, it will allow rapid and
inexpensive cosmogenic dating of a wide range of rock types, thus increasing the number
of samples that can be dated in a single study. Second, because 3He is stable and has a
very high production rate, it may prove useful in combination with other cosmogenic
nuclides to address problems such as paleoaltimetry, ancient exposure and burial histories
(100 my time scales), and dating of archaeological sites and artifacts.
Several technical challenges need to be overcome before 3He in apatite, sphene
and zircon can be used as a cosmogenic dating tool. First, it is necessary to develop
analytical procedures such that the measurement of small amounts of 3He in the presence
of large quantities of radiogenic 4He is not hampered by the "tailing" of low energy 4He
ions onto the 3He peak, or by space charge effects at high 4He abundances. The former
is likely not a problem based on the demonstrated abundance sensitivity at mass 3, and
the latter will be addressed using a spike of standard gas inlet during the measurement
of an unknown to calibrate the instrument at that He pressure. A second challenge is to
verify the production rate of 3He, which will be done using samples of known exposure
age from glacial moraines in the Sierra Nevada and Nepal Himalaya. Implicit in this task
is identifying and correcting for non-cosmogenic sources of 3He such as inheritance from
fluid inclusions and production via 6Li(n, alpha) + time -> 3He.